Probabilistic Considerations in the Analysis of Algorithms

The investigator will continue his work on the interplay between
probability and algorithms. He has identified two distinct but
very important aspects of such study. In the first instance he will
study randomized algorithms i.e. those algorithms that introduce randomness
as a means of speeding up computation. In the second instance, he will
consider the average case performance of algorithms. Here, he wants to try
to explain the good performance of simple algorithms on
"typical" problems as opposed to the worst-case performance
exemplified by the pathological examples of complexity theory.

In the area of randomized algorithms, the investigator will consider
problems arising in the study of Monte Carlo Markov Chain algorithms.
In particular he will study their use in problems associated with
combinatorial counting problems and with problems in Statistical
Physics. He will also continue his study of the Edge Disjoint Path
problem and the construction of a generalisation of the well known
matrix Singular Value Decomposition to multi-dimensional matrices.
In the area of average case analysis, he will continue his work on the
Traveling Salesman Problem and try to extend his ideas to the
independent symmetric model. He will continue his work on analysing the
efficacy of the Sequencing By Hybridization technique in Computational
Biology. Finally, he will continue to work on probabilistic models of the
World Wide Web in an attempt to find a useful model for
the testing of algorithmic ideas.